Preserving and Enhancing Accessiblility of Gosiute/Shoshoni Materials in the Wick R. Miller Collection

With National Science Foundation support, Professors Mauricio J. Mixco and Marianna Di Paolo will head four teams in transcribing and translating materials from the Wick R. Miller Collection (WRMC) at the University of Utah. The teams, which include Shoshoni native-speakers, will will preserve and enhance the accessibility of the 148 tape recordings and associated manuscripts in Great Basin languages now vulnerable to deterioration, including 119 untranscribed and untranslated tapes in the Shoshoni/Gosiute language, a member of the Central Numic branch of Numic, a the Uto-Aztecan language family spoken in the Great Basin regions of Nevada, Utah, Idaho and Wyoming. With roughly 2,000 to 3,000 native speakers, Shoshoni/Gosiute is
highly endangered as most speakers are above 60 years old and it is
not being passed on to the youngest generations.

The bulk of the recordings and manuscripts at risk contain invaluable
linguistic, cultural, and historical data collected over 30 years by
the late Numic expert, Wick R. Miller, primarily by and about the
Great Basin Shoshoni and Gosiute tribes, whose cultural heritage is
contained in Miller's recordings and manuscripts. The original tape
recordings will be re-mastered onto archival quality reel-to-reel
tapes and DAT tapes to serve as digital masters from which to produce
working files for transcription and downloading to more portable
compact disk or cassette formats. Linguistics student assistants
will scan and/or type into a computer database the Miller notebooks
and binders containing field notes from elicitation sessions along
with the few existing transcripts of the tapes. This will produce a
searchable electronic copy of the notebooks and binders. Tribal
members and scholars will have ready access to the materials through
the University of Utah Marriott Library and on a website, especially
in support of current and future language maintenance and
revitalization efforts.

A projected reference grammar, dictionary and text collection will
also draw on previous studies of Shoshoni/Gosiute sentence structure,
supplementing these materials with original analyses of its syntax
and semantics to fill in gaps in the earlier research. The proposed
reference grammar will cover the structure, meaning, and use of all
known Shoshoni/Gosiute simple and complex sentence types and other
discourse structures. Entries in the grammar and bilingual
Shoshoni-English dictionary will be streamlined, with generalizations
stated early and with complications and exceptions added later. A
wide range of examples and additional cultural notes that can be
ignored by readers seeking a quick overview will be included. The reference grammar, dictionary and text collection will aid community efforts to strengthen the use of Shoshoni/Gosiute and maintain its rich linguistic and literary tradition. They will also be a resource for linguists to test analyses of grammatical phenomena and to further describe how Shoshoni/Gosiute fits into the spectrum of human languages.